NSF Young Investigator

9457907 Bershadsky This activity in theoretical physics will continue the investigation of the anomaly master equation. This study is closely related to the properties of the Kodaira-Spencer theory of Gravity. In addition, a study of topological massive field theories coupled to gravity will be initiated. ***